Computer Science and Mathematics Scholarships Program:

Scholarships are available for 32 academically talented, low income students majoring in computer science or mathematics. A team approach coupled with an advising and academic support center is ensuring the
success of students in completing mathematics and computer science degrees, and increasing the number who continue on to graduate-level programs upon graduation.